Memory-Efficient Implementation of Sparse Linear Solvers

Solving many important problems in science and engineering depends on efficiently solving sparse linear systems, that is, sets of equations with many zero entries in the coefficients. This project will study techniques for creating sparse linear solvers that make efficient use of the memory hierarcy on single processor computers. It will concentrate on methods that reformulate the original system as a blocked system, with careful choices of the blocks to speed up convergence. Performance programming techniques will reduce the costs of the extra matrix-vector operations needed by the blocked version.

There are three technical goals of this work. The first is to contribute to the understanding of the numerical behavior of memory-efficient sparse linear solvers through analysis and experiment. The second is to identify at least one robust, memory-efficient sparse linear solver for inclusion in the Portable Extensible Toolkit for Scientific Computation (PETSc) library. The final goal is to develop a memory-centric performance metric for evaluating the memory traffic requirements of linear algebra algorithms.